Visualization of Large, Multidimensional, Multivariate Data Sets (SBIR Phase II)

This proposal deals with a cost effective means for handling the massive amounts of data produced by supercomputer users. It aims to produce the necessary software and hardware interfaces required for the use of inexpensive personal computer workstations for data visualization. In addition, interactive visualization software will be developed suitable for the analysis of general Cartesion data; new visual formats and algorithms will be developed for the analysis of multidimensional, multivariate data; and new hardware architectures will be explored that will accelerate the production of graphical expressions of data representing continuous fields.